Partial Support for Scientific Planning for the International Human Dimensions (of Global Environmental Change) Program (IHDP)

Scientific planning activities will be undertaken to further develop the revised scientific agenda of the International Human Dimensions (of Global Environmental Change) Program (IHDP). These activities will focus on planning for studies of the Institutional Dimensions of Global Change (IDGC); of Industrial Transformation (IT) to more sustainable production and consumption patterns; and of Global Environmental Change and Human Security (GECHS). An implementation plan for research on Land Use and Land Cover Change Program (LUCC: studies supported jointly by the IHDP and the International Geosphere-Biosphere Program (IGBP)) will be developed. Scientific capacity-building and networking, especially with scientists in developing countries will be enhanced; interaction between IHDP scientists and policy makers will be developed; and scientific planning meetings and workshops will be organized on emerging human dimensions issues such as the interaction between global change and urbanization, health and water. These activities will be coordinated by the revamped IHDP Scientific Committee with strong support from the IHDP Secretariat recently established at the University of Bonn under a major grant from the German Ministry for Education, Science, Research and Tech- nology (BMBF). Oversight for these activities will be provided by the International Council of Scientific Unions (ICSU), with cooperation from the International Social Science Council (ISSC).